Pacific Northwest Geometry Seminar

Abstract

Award: DMS-0306656
Principal Investigator: James A. Isenberg

It is proposed that the National Science Foundation provide
funding for the meetings of the Pacific Northwest Geometry
Seminar (PNGS) to be held during the three-year period from July
1, 2003 to June 30, 2006 at University of British Columbia,
Oregon State University, University of Oregon, University of
Utah, University of Washington, Portland State University, and
Stanford University. PNGS meetings generally feature 4 or 5
invited research talks by leading experts in differential
geometry and algebraic geometry. The meetings also include
discussion sessions in which the speakers and participants assess
the state of various areas in geometry, and highlight open
problems in these areas.

There are a number of very active researchers in geometry
scattered throughout the various universities which are involved
in the Pacific Northwest Geometry Seminar. These periodic
meetings bring these researchers together for consultation,
collaboration, and stimulation of new ideas. A number of research
programs have been initiated as a result of interactions at these
meetings. The PNGS is especially valuable for graduate students
in geometry at the various participating universities which have
small geometry groups. The PNGS meetings give these students an
excellent opportunity to see the broader picture of research in
geometry.